Mathematical Sciences: Topics in Combinatorial Geometry

This project will involve two basic topics of combinatorial geometry, namely polyhedra and configurations. The principal investigator will study a general theory for polyhedra in 3- dimensional space including self-intersecting polyhedra and those with self-intersecting faces. He will also analyze polyhedra without self-intersections which have faces which are equivalent under symmetries of the polyhedron. Examples of convex polyhedra in three-dimensional space include boxes, pyramids, and the shapes of most buildings. These are convex if they have no indentations and always protrude outward. When a convex building has windows, one cannot see the outside of the building through any of these. For many decades mathematicians have studied convex polyhedra and their many applications. The principal investigator will extend many of the results of this earlier work to polyhedra which are not convex.